Regenerative Technologies in the Future: Tissue Engineering and Organ Printing

DRL- 0810261
PI: Gabor Forgacs

ABSTRACT

In this Communicating Research to Public Audiences (CRPA) project, the University of Missouri is collaborating with the St. Louis Science Center on the development and implementation of exhibits and programs related to the principal investigator’s NSF-funded research on tissue engineering and organ printing, Understanding Molecular Self-Assembly. The research is exploring basic research and technologies that could provide alternatives to organ donor transplants, especially given the mismatch between the demand and supply of organs. The exhibits will become an offering in the science center’s new life sciences gallery whose goal is to help visitors better understand the applications of life science research that affect people’s everyday lives.